AMP: NSF ALLIANCE PROPOSAL

Development of quality educational programs to attract and retain underrepresented minorities in science and engineering is a well- established national priority. This proposal describes a program designed to improve the educational framework for emerging minority scientists and engineers. The proposal will focus on undergraduate education as its core component as well as the essential elements required to increase the percentage of students in post-graduate science and engineering programs. The partners in the proposed alliance represent diverse programs, yet have remarkably common objectives. The unifying goal is to build on the existing knowledge base relative to minority participation in science and engineering and to expand the available options to enrich programs at partner institutions and beyond. This Alliance has been formed to develop strategies increase access and opportunities for minority students in science and engineering. The goals of the alliance are: 1) to improve the quality of the learning environment for minority science and engineering students at all schools, 2) to substantially increase the number of minority students graduating with degrees in science and engineering, and 3) to develop and implement effective methods of attracting talented minority students who would not otherwise choose science or engineering as a career. The project will emphasize collaborative learning approaches, positive and sustained interaction with faculty, intensive interaction with other support persons, and hands-on research and internship experience. The Alliance will focus on developing and implementing innovative methods for interesting community college students in science and engineering careers and will concentrate on the transition point to graduate school.